Multiple Instrumental Case Studies of Inclusive STEM-focused High Schools: Opportunity Structures for Preparation and Inspiration (OSPrl).

The aim of this project is to examine opportunity structures provided to students by inclusive STEM-focused high schools, with an emphasis on studying schools that serve students from underrepresented groups. In contrast to highly selective STEM-focused schools that target students who are already identified as gifted and talented in STEM, inclusive STEM-focused high schools aim to develop new sources of STEM talent, particularly among underrepresented minority students, to improve workforce development and prepare STEM professionals. A new NRC report, Successful K-12 STEM Education (2011), identifies areas in which research on STEM-focused schools is most needed. The NRC report points out the importance of providing opportunities for groups that are underrepresented in the sciences, especially Blacks, Hispanics, and low-income students who disproportionately fall out of the high-achieving group in K-12 education. This project responds specifically to the call for research in the NRC report and provides systematic data to define and clarify the nature of such schools.

The project is studying inclusive STEM-focused high schools across the United States to determine what defines them. The research team initially identified ten candidate critical components that define STEM-focused high schools and is refining and further clarifying the critical components through the research study. The first phase of the study is focusing on 12 well-established and carefully planned schools with good reputations and strong community and business support, in order to capture the critical components as intended and implemented. Case studies of these high-functioning schools and a cross-case analysis using a set of instruments for gauging STEM design and implementation are contributing toward building a theory of action for such schools that can be applied more generally to STEM education. The second phase of the study involves selecting four school models for further study, focusing on student-level experiences and comparing student outcomes against comprehensive schools in the same district. Research questions being studied include: 1) Is there a core set of likely critical components shared by well-established, promising inclusive STEM-focused high schools? Do other components emerge from the study? 2) How are the critical components implemented in each school? 3) What are the contextual affordances and constraints that influence schools' designs, their implementation, and student outcomes? 4) How do student STEM outcomes in these schools compare with school district and state averages? 5) How do four promising such schools compare with matched comprehensive high schools within their respective school districts, and how are the critical components displayed? 6) From the points of view of students underrepresented in STEM fields, how do education experiences at the schools and their matched counterparts compare? And 7) How do student outcomes compare?

The research uses a multiple instrumental case study design in order to describe and compare similar phenomena. Schools as critical cases are being selected through a nomination process by experts, followed by screening and categorization according to key design dimensions. Data sources include school documents and public database information; a survey, followed by telephone interviews that probe for elaborated information, to provide a systematic overview of the candidate components; on-site visitations to each school provide data on classroom observations at the schools; interviews with students, teachers and administrators in focus groups; and discussions with critical members of the school community that provide unique opportunities to learn such as mentors, business leaders, and members of higher education community that provide outside of school learning experiences. The project is also gathering data on a variety of school-level student outcome indicators, and is tracking the likely STEM course trajectories for students, graduation rates, and college admission rates for students in the inclusive STEM-focused schools, as compared to other schools in the same jurisdiction. Analysis of the first phase of the study aims to develop rich descriptions that showcase characteristics of the schools, using axial and open coding, to determine a theory of action that illustrates interconnections among context, design, implementation, and outcome elements. Analysis of the second phase of the study involves similar processes on four levels: school, student, databases, and a synthesis of the three. Evaluation of the project consists of an internal advisory board and an external advisory board, both of which provide primarily formative feedback on research procedures.

Research findings, as well as case studies, records of instrument and rubric development and use, annual reports, and conference proposals and papers are being provided on a website, in order to provide an immediate and ongoing resource for education leaders, researchers and policymakers to learn about research on these schools and particular models. An effort is also being made to give voice to the experiences of high school students from the four pairs of high schools studied in the second phase of the study. Findings are also being disseminated by more traditional means, such as papers in peer-reviewed journals and conference presentations.